Winter 2001 Convection in the Japan Sea

Talley/0117271

This project is an experiment conducted as a rapid response to the
anomalously cold winter conditions over eastern Siberia. Mid-winter
conditions appear to be comparable to those seen in 1976. The goals
are to discover the depth to which deep convection penetrates under
such conditions in the Sea of Japan, the size of a typical convective
patch, and the properties of the dense water formed. The experiment
consists of a short cruise into a part of the Sea of Japan south of
Vladivostok. The choice of location is based on survey work conducted
last winter as part of a large ONR-sponsored experiment in the Japan
Sea, recent AVHRR imagery, and recent data from a PALACE float in the
Sea of Japan. Deep CTD and bottle casts will be made at approximately
34 stations south of Peter the Great Bay. The endeavor is a
collaboration between U.S. and Russian oceanographers.